Analytic and Geometric Aspects of Ricci Flow

ABSTRACT DMS - 0203926.

The objective of this project is to study analytic and geometric aspects of
Hamilton's Ricci flow of Riemannian metrics, and related topics. In particular,
the principal investigator proposes to investigate injectivity radius estimates
for solutions to the Ricci flow. The PI proposes to study
Li-Yau-Hamilton (Harnack) inequalities for both the Ricci flow and the
linearized Ricci flow. The PI also proposes to study collapsing sequences of solutions
to the Ricci flow and the related compactness theory. Finally, the PI proposes to
study estimates for the linearized Ricci flow and
their applications. The PI will focus on dimension 3, where there are the
most tools available and the problems posed have the most topological applications.

The Ricci flow is an evolution equation which deforms geometric structures
on surfaces and manifolds both improving and smoothing out the structures.
It has been at the cutting edge of the recent rapid progress in geometric
evolution equations and has greatly influenced the study of the mean curvature
flow and many other geometric evolution equations. The work on
understanding the singularities which develop under the flow has led to the development
of new and powerful analytic and geometric tools, which have found applications in the
study of many geometric evolution equations. Many phenomena are
modeled by geometric evolution equations, such as heat transfer, the
evolution of interfaces between molten and solid metal, and the interfaces between ice
and water. Geometric evolution equations are also used to smooth out images and
have applications in computer vision.